Nondestructive Evaluation of Debonding in Fibrous Composites through Multiaxial Loading

It is proposed to determine the feasibility of a new method for nondestructive evaluation of debonding in fibrous composite materials. The method is based upon micromechanical predictions which indicate that damage in the form of debonding in unidirectional metal matrix composites has no influence on the axial modulus in the fiber direction, but it does have an appreciable influence on the shear modulus for loading by pure longitudinal composites subjected to combined stress states remains an open question. The proposed test method will exploit the knowledge available from the micromechanical predictions to assess debonding in silicon-carbide/titanium tubes through a series of carefully chosen sequential, multiaxial load increments. The method is nondestructive in the sense that in - situ stress and strain measurements provide the necessary data. It is not necessary to remove the specimen form the test machine, take edge replicas, use x-ray equipment, or conduct microscopic studies on sectioned portions of the specimens.